ABI Innovation: Identification and correction of incorrect sequences in reference protein databases

With the sequencing of the Human genome and the dawn of the genome age, physicians and scientists have a complete 'parts-list' - DNA and protein sequences - for the machinery in the cells of thousands of different organisms, from people to plants to bacteria. But, because we cannot look at the machines or their parts directly, some of the details are incorrect. The methods produce incorrect details in part because they were developed in the 'pre-genome' era, when our parts lists were far less complete, and in part because we use the parts-list from one organism (mouse) to help us identify the parts in another organism (rat). But, if the first set of parts (protein sequences) has errors, those errors can end up in the second set, and as more organisms are studied, the errors multiply. Incorrect protein sequences make it more difficult to identify mutations that may be associated with cancer and other diseases. Today, protein sequence quality control largely relies on the accuracy of other protein sequences. This proposal seeks to greatly expand the types of information used to confirm that the details (sequences) of the cellular machinery are correct, and to collaborate with the Uniprot protein sequence database to ensure that incorrect sequences are corrected and so that future analyses do not repeat mistakes. The proposed research will increase researchers' confidence that exciting differences between phenotypes, such as diseased and normal cells, or different strains of food crops, are genuine, and not the result of mistaken protein sequences.

The UniProt Reference protein sets are a critical resource, providing a foundation for advances in genome biology, structure/function prediction, and personalized medicine. But Reference protein sets have characteristic errors that can be amplified in genome annotation, reducing the accuracy of functional annotation and similarity search sensitivity. This project is a collaboration with the Uniprot protein resource that will develop novel strategies for identifying protein sequence errors; these strategies will be incorporated into the Uniprot annotation pipelines to remove erroneous sequences from Reference databases. Initially, errors will be found by integrating exon-boundary and Pfam domain annotations into BLAST-based similarity search results to identify currently recognized errors, such as missing/additional exons and partial domains. In addition, strategies will be developed to detect currently unrecognized errors, by clustering similar proteins and looking for 'outliers'. Lists of 'suspect' protein sequences will be examined by Uniprot annotators and classified as true or mistaken errors, and successful error detection strategies will be refined and integrated into the Uniprot annotation pipeline, reducing functional annotation errors.